Scientists for Tomorrow

Through the Scientists for Tomorrow pathways project, The Science Institute at Columbia College in Chicago will test a model for preparing non-science major, pre-service elementary school teachers to deliver three ten-week informal science education modules to youth in after school programs. The initiative will bring engineering concepts, environmental science, and technology to approximately 240 urban Chicago youth (ages 10-14 years old) and their families. The Science Institute will partner with eight minority serving community based organizations and the Museum of Science and Industry, the Field Museum, and the Garfield Park Conservatory Alliance to develop and implement all aspects of the program. The goals of the program are two-fold. First, the project will develop and implement a high-quality STEM based afterschool program for under-represented youth in STEM. Second, the professional development and experience implementing the curriculum with youth in the local communities and within informal science education (ISE) institutions will extend and enrich the pre-service teachers' STEM content and pedagogical knowledge base and better prepare them to teach science in formal and informal settings.

Thirty teachers will receive specialized professional development through a seminar, course, and other support mechanisms in order to best support the implementation of the modules, while building their STEM content expertise, confidence, and pedagogical knowledge. Each module has a different STEM content focus: alternative energy (fall), the physics and mathematics of sound and music (winter), and environmental science (spring). At the end of each module, a culminating youth-led presentation will be held at one of the partnering Chicago museums. Youth will be encouraged to participate in all three modules. The formative evaluation will be conducted by the Co-Principal Investigators. Pre and post assessments, artifact reviews, and interviews will be used for the summative evaluation, which will be conducted by an external evaluator at the Illinois Institute of Technology.

The project deliverables include: (a) a teacher training program, (b) an after school curriculum, and (c) media tools - DVDs, website. Over the grant period, the project intends to reach 120 youth each year, over 100 family and community members, and 30 teachers. The larger impact of this project will be the development of a scalable model for bringing relevant STEM content and experiences to youth, their families, and non-science major pre-service teachers. As a result of this project, a cadre of pre-service teachers will have: (a) increased their STEM content knowledge, (b) gained experience presenting STEM content in informal settings, (c) learned effective approaches to deliver hands-on STEM content, and (d) learned to use museum and other ISE resources in their teaching. In fact, after the grant period nearly half of the teachers will continue to work at the centers as part-time instructors, fully supported by the partnering community centers.